Research Experiences for Undergraduates in Molecular Physics at SRI

9500903 Jeffries The Research Experiences for Undergraduates Site" at SRI International will be continued. This activity recruits nationally, and allows students to spend the summer participating consequentially in a range of important experiments in atomic and molecular physics. The setting is unique, being in a large not-for-profit research center, which gives students experience in non-academic research. ***